U.S.-U.S.S.R. Exploratory Visit Concerning Baikal Drilling Project (Pirkutsk, USSR; January 8-13, 1990)

The purpose of this travel award is to allow Dr. Douglas F. Williams to continue the dialogue with the Soviet Academy of Sciences (SAS) and USSR Ministry of Geology (MINGEO) about a program for long-term research of Lake Baikal as it relates to global climate change, biogeochemical cycles, continental rifting and geophysics, and joint US-USSR continental scientific drilling. This would build directly on earlier discussions about a possible Baikal Drilling Project (BDP) held at the University of South Carolina in July 1989 and at Yaroslavl, Moscow and Irkutsk in August 1989. Dr. Williams would also be able to discuss with his Soviet counterparts the results of the first processing by US geophysicists of Soviet geophysical multi- channel seismic (MCS) data from Lake Baikal, collected by the Institute of Oceanology (Moscow) in the summer of 1989. That would be particularly important because is shows real progress in the step-wise process of initiating US-USSR basic geoscience research on Lake Baikal. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the U.S.S.R. to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.